Non-linear Analysis in Riemannian Geometry

Abstract

Award: DMS-0306495
Principal Investigator: Jose F. Escobar

Professor Escobar plans to continue his research in linear and
non-linear partial differential equations and its applications to
Riemmannian Geometry. He will continue his study of solutions to
Yamabe equations on compact Riemannian manifolds. These are
semilinear elliptic equations and in the case that the manifold
has a boundary they satisfy a non-linear boundary condition.
Applications of the existence theory for these equations are
proposed to solve other problems in differential geometry and
relativity. He also proposes to study Hamilton's Ricci flow on
two and three dimensional manifols with boundary. In the two
dimensional case this is a scalar non-linear evolution equation
satisfying a non-linear boundary condition, while in the three
dimensional case is a system of nonlinear equations with
nonlinear boundary conditions. He will continue the study of the
relation between the geometry of the manifold and the eigenvalues
for the Steklov problem, which is the study of harmonic functions
whose normal derivative is proportional to the function.

The geometric objects that will be studied are the so-called
Riemannian manifolds. These are spaces endowed with analytical
structures, like the metric which provide us with a way to
measure lengths and angles. It is natural to study deformations
of these structures to realize what properties in the space
remain stable under such perturbations. The description of all
these deformations is usually governed by differential equations.
The curvature tensor of a Riemmannian manifold ( a measure for
the "non-euclideanness" of a Riemannian space) usually makes such
equations non-linear, although as in physics, most of them are of
variational nature. From the earliest days, conformal changes of
metric ( multiplication of the metric by a positive function)
have played an importntant role in surface theory. The equations
proposed appear in the problem of conformal deformation of a
Riemannian metric and in relativity. The Steklov problem appears
in mathematical physics, conformal geometry, spinor geometry,
minimal surfaces, partial differential equations and harmonic
analysis. Geometry as well as topology involves the study of
properties of the space. But whereas geometry focuses on
properties of space that involves size, shape and measurement,
topology concerns itself with the less tangible properties of
relative position and connectedness. In recent years Hamilton's
Ricci flow has become a fundamental tool in the study of geometry
and toplogy of manifolds.